Minority Institutions Infrastructure: Project RAISE

This is a Planning Grant to develop a five year continuing grant proposal under the Minority Institutions Infrastructure (MI-I) program. The institution plans to develop activities which are part of their long range plan, Project RAISE, Research Advancement in Science Education. As a part of these activities, a proposal for a five-year continuing grant will be developed. Winston Salem State University is one of sixteen institutions comprising the University of North Carolina System. It is a predominately African-American undergraduate institution serving the educational needs of Winston-Salem and the northwest Piedmont area. There are currently 226 students majoring in computer science and the project, if successful as a five-year proposal, has the potential ultimately to significantly increase the number and quality of students graduating in computer science.